PostDoctoral Research Fellowship

This award is made as part of the FY 2022 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Patrick Lopatto is "Topics in Random Matrix Theory: Large Deviations and Extremal Statistics." The host institution for the fellowship is Brown University, and the sponsoring scientist is Kavita Ramanan.